Synaptic Reorganization in the Adult Rat Striatum

These experiments will examine the basal ganglia, a part of the brain which controls movement. In the brain nerve cells form connections with each other and transmit to one another information that is determined partially by the chemicals contained within them. However, the ability of the brain in adult mammals to repair itself following injury or disease is limited and not well understood. One response of nerve cell death in the basal ganglia is that the surviving cells appear to reorganize. In other words, the nerve cells form new connections with cells they do not normally communicate with. The goal of Dr. Roberts research is to develop anatomical techniques that will allow her to identify the cells that form these new connections. In addition, Dr. Roberts will determine the chemical composition of these cells following nerve cell loss. These experiments which will characterize the surviving nerve cells, will provide clues as to the functional impact of these changes and may begin to explain the elements necessary for repair and recovery in the brain after the injury.